REU Site for Microelectronic Materials and Processing

Twelve students will participate in the Research Experiences for Undergraduates program in microelectronic materials and processing at Purdue. The Schools of Chemical, Electrical, and Materials Engineering, which have been sharing undergraduate courses as well as research on electronic materials and processing for several years, participate in this program. Students will be recruited from regional universities and universities with high minority enrollments for summer research projects. Undergraduate students from Purdue will be able to perform summer or academic year research. The focus of the REU site will be the synthesis, processing, properties, structure, and performance of microelectronic materials, and the interrelationships among these aspects. Specific projects include anisotropic etching of microelectronic this films, selective epitaxial growth and insulator degradation, processing on patterned substrates, fundamentals of metal contacts to semiconductors, and integration of oxide films with Si technologies. The goals of the REU are to introduce students - with emphasis on women and minorities - to independent research on electronic materials and their processing, to develop and enhance the student's creativity and originality, to develop outstanding candidates for graduate programs, to demonstrate the excitement and rewards from successful research, and to prepare B.S. graduates who will excel in industrial Research and Development environments.